Conference: Recent progress in stochastic analysis and its applications

This award will support the conference "Recent Progress in Stochastic Analysis and its Applications”, which will take place at Loyola University Chicago on July 15–19, 2024. This conference will bring together leading experts in probability to highlight exciting recent progress and open problems that have the potential to profoundly impact stochastic analysis and its applications, which include other areas of mathematics, and science and engineering fields. The gathering will seek to foster inclusivity by actively engaging junior participants and researchers from traditionally underrepresented groups.

While central to probability theory, stochastic analysis transcends theoretical boundaries, forging crucial links with various scientific and engineering domains. This conference will highlight four important subareas: Dirichlet form theory and applications, heat kernels and their estimates, stochastic partial differential equations, and interacting particle systems and percolation theory. The conference website is: https://sites.google.com/view/rpsaa2024/home